Control and Stabilization of Elastic Systems: Anisotropic Elasticity and Other Coupled Systems

9803547
Horn

Questions addressed in this proposal include, firstly, the uniform stability
of an anisotropic system of elasticity. Recent results by Alabau and
Komornik have shown that such a system is uniformly stable if the domain
is a sphere. If the system is isotropic, the PI has obtained uniform stability
for more general domains. Thus, the goal is to obtain the best of both:
Uniform stability of an anisotropic system on a more general domain.
Techniques involved in the proof include sharp traces regularity estimates,
obtained through the use of microlocal analysis. Of particular interest is
the need for unique continuation for the anisotropic system. Secondly,
exact controllability results even under the assumption that the system is
isotropic are problematic. While a few results exist, in most cases the
proofs are not accessible beyond a specialized audience or the geometric
restrictions are extremely stringent. An approach based on the use of
Carleman type estimates, which allow higher order coupling terms to be
considered, is considered for both Dirichlet or Neumann boundary
conditions. Finally, further applications of sharp trace regularity results
are seen in the case of cylindrical shells. A particular question of interest
is whether the stability properties are robust with respect to the thickness
of the shell.

Exact controllability, i.e., the ability to drive a system to a desired state, is
an important question arising in engineering. Random or uncontrolled
vibrations which may occur can lead to serious consequences. From
witnesses to the collapse of the Tacoma Narrows Bridge to a businessman
bothered by distortion on his cellular phone, almost everyone has
experienced the effects of a lack of control. If a system is uniformly
stable, any undesired vibrations can be damped out through an appropriate
choice of input, e.g., through a direct force or torque along the boundary
of the object. Investigations in this project focus on the theoretical aspects
of control when an elastic body is assumed to be composed of more than
one material or is nonuniform.